GOALI: Development of Advanced Control Methodologies for Hexapod Machining Cell

This collaborative research project aims to develop advanced sensing and control methodologies for hexapod machining cells. Process parameters will be identified and characterized, and used to develop the advanced process model-based controller for the hexapod machining cell. Information from force, temperature and position sensors will be fused, before being used by the position control algorithm created for the machine for error compensation. The research will be conducted by the University of Florida in collaboration with the National Institute of Standards and Technology (NIST) and Sandia National Laboratory, using the hexapod machining cells available at the NIST and Sandia Laboratories, as well as the micro-manipulator hexapod developed by the Systems Automation and Mobility in Manufacturing Laboratory at the University of Florida. The research project will contribute toward improving the accuracy of hexapod machining cells via advanced control techniques. It synergizes the research efforts of the University and its collaborative partners.